Research on Learning in Industrial Settings: Persistence Turnover, and Transfer

Little is known about how and why learning occurs in organizations, whether it persists, and how to transfer it. The proposed research empirically investigates the persistence of learning within organizations and the transfer of learning across organizations. The role of turnover in learning and its persistence are also examined. The analyses are based on data collected from one firm in the aerospace industry producing an advanced jet and from three plants of the same firm in the automotive industry producing a light truck. The research estimates production functions with variables included to assess the importance of persistence, transfer and labor turnover in affecting the efficiency of the production process. In addition to testing whether learning persists, whether it transfers, and whether turnover is related to the rate of learning, the research aims to develop a theoretical model of learning in organizations that integrates and explains the empirical findings. The research will advance scientific knowledge about why learning occurs in organizations and whether it persists and transfers. It should have implications for organizations to improve their productivity and hence, compete more effectively.